Region Segmentation by Time Series Analysis

The main purpose of this study is to analyze new region segmentation techniques based on the temporal properties of image sequences. These techniques will enable precise definition of regions with similar or dissimilar temporal patterns with respect to a reference pixel or reference ROI (region of interest). Different similarity measures (correlation coefficient, covariance, Tanimoto coefficient, etc.) will be tested on sequences of image ROI's (regions of interest) of various sized and spacings. The computational effectiveness of each similarity measure will also be evaluated. In addition, a method for automatic selection of reference ROIs will be designed and tested based on a new idea for maximum entropy histogramming. All of the ideas will be tested by (1) mathematical modeling, (2) application to earth resources imagery, (3) application to medical imagery. The significance of this research is that these new methods are of great importance in dynamic image analysis due to the enormous size of the data base to be processed. For example, a single spectral component of Landsat imagery taken of a single region on the surface of the earth over 10 years is composed of about three billion data points (pixels). Clearly, extremely efficient computational techniques are necessary to analyze dynamic temporal changes and they will have a potential use as a research tool in quantitative imaging. Fortunately, the segmentation techniques developed for time series analysis of one type of image data can be employed for time series segmentation of other type of image data. For example, the techniques developed for satellite image sequences can be used for analyzing medical data, and vice versa. The results obtained in this study will lead into a long term goal of establishing models and techniques for the study of temporal behavior of imaged structures and improve our ability to extract quantitative information contained in dynamic images.